Topics in Dilation Theory

PI: Scott McCullough
Proposal Number: 0140112

ABSTRACT

The Sz. Nagy Dilation Theorem, which models a contraction
operator on Hilbert space as the adjoint of an isometry
restricted to an invariant subspace has had a profound
influence on operator theory and its applications. The
existence of the Agler boundary for families of
representations and of boundary representations
(not necessarily irreducible) and the C-star envelope
for operator algebras are abstract generalizations of
the Sz.-Nagy dilation theorem which naturally encode
Pick interpolation and in many cases commutant lifting.
They also provide a natural setting for versions of
Beurling's theorem. The Agler boundary and C-star envelope
have been explicitly computed for the families of
completely contractive representations of the algebra of
multipliers of symmetric Fock space, the algebra
of multipliers of the Dirichlet space, as well as
quotients of the disc and annulus algebra. The PI will
investigate situations in which strong versions of Pick
interpolation, Beurling's theorem, and commutant lifting
hold as a function of the complexity of the corresponding
Agler boundary and C-star envelope. The investigation
will make contact with function theory, special functions,
differential equations, and the general theory of operator
algebras. Thre are also plans to continue studying
factorization of polynomials in several non-commuting
variables pursuing the theme that one-variable results
most naturally generalize to the non-commutative setting.

Operator theory has a history of rich interplay with
engineering and physics as well as other vital areas of
mathematics including complex function theory and algebraic
geometry. Originally developed as a tool to study integral
and differential equations arising in physics, operator theory,
operator algebras, and operator systems play an important role
in modern quantum physics. Four fundamental themes in operator
theory, Sz.-Nagy dilation, Pick interpolation, commutant
lifting, and Beurling's theorem are now basic technology in
systems theory which in turn has important applications in image
processing and control theory - the mathematics behind automatic
controllers such as autopilots. A major emphasis in the proposed
work is generalizations of these themes with a view toward
applications to systems theory, control theory, operator algebras,
and function theory. McCullough will also study factorization
problems for polynomials in several non-commuting variables.
(Here xy may not equal yx.) This investigation is
expected to make connection with non-commutative algebraic
geometry and Linear Matrix Inequalities or LMI's which
frequently arise in engineering applications.